General Theory For Population Dynamics of Parasitoid-Host Systems

9420286 Murdoch This research will develop theory for the population dynamics of insect host-parasitoid interactions for species with continuous reproduction and development. It will concentrate on mechanisms that depend on either the host developmental stage that is attacked (stage-structured processes) or the physiological state of the searching parasitoid (state-dependent processes), or on both. Only recently have modeling techniques advanced to the point that these types of mechanisms can be realistically incorporated into population dynamic models. The goals of the research are (1) to get insight into the dynamical effects of processes seen in stage-structured parasitoid-host systems, (2) to obtain generality by showing how apparently different mechanisms have similar dynamical consequences, (3) to incorporate into population dynamics recent evolutionary ideas about optimal parasitoid behavior, and (4) to explain observed dynamical patterns and alert us to potential new patterns. About 10% of all metazoan species are parasitoids. They are important in many natural communities and have been used in agriculture over the past 100 years as environmentally safe, and frequently highly effective, agents for controlling insect pests. The results will give insight into the processes and mechanisms driving the dynamics of such parasitoid-host systems. In addition, they will bring together population dynamics and recent ideas on, and insights into, the evolutionary basis for parasitoid behavior.